Ecological Modeling: From Individual Utilization of Space to Community Structure

Cosner
9973017
The investigators study mathematical models for the dynamics
of spatially distributed biological populations. The goal of the
project is to provide a better theoretical understanding of how
the spatial distribution and movement of individuals affect the
persistence or extinction of populations. The motivation is to
gain insight into the ways that spatial effects contribute to the
maintenance of biodiversity and the ways that changes in the
spatial aspects of the environment can threaten biodiversity.
The project is primarily concerned with the construction and
analysis of models for edge-mediated effects and the development
of methods for translating assumptions about the behavior of
individuals on a small spatial scale into conclusions about the
dynamics of populations on a large spatial scale. Edge-mediated
effects occur when the presence of an interface between habitat
types has an effect on population dynamics. An example of an
edge-mediated effect might occur if a fragment of habitat were
cut off from a larger region by a road that some species would
cross but others would not. If the presence of the edge (the
road) thus resulted in a change in the species composition of the
ecological community in the fragment, that would be an
edge-mediated effect. Issues of scaling from local behavior to
large-scale conclusions arise in ecology because it is often
possible to determine small-scale behavior by observing a few
individuals, while directly observing the overall dynamics of a
large population is much more difficult. The methodology of the
project is to construct mathematical models for spatially
distributed populations and then to analyze those models'
predictions of persistence or extinction for the species they
describe. The mathematical models are typically based on
ordinary or partial differential equations. The analysis
typically involves ideas from dynamical systems, nonlinear
functional analysis (especially bifurcation theory), and partial
differential equations (especially comparison methods and
elliptic spectral theory). A secondary goal is to obtain new
mathematical results that are useful in the context of
applications.
The investigators study ways of using mathematics to
understand ecological problems. The problems mostly involve
spatial aspects of the environment; for example, how to design
the most effective nature reserves, or how to predict the likely
effects of the fragmentation of natural habitats on the
populations that inhabit them. The problems also involve
interactions between different biological species, for example
predators and prey. The methodology is to express the essential
features of a biological system in terms of equations and then to
study the equations to determine what they predict. The analysis
often requires the development of new mathematical results, which
may be of use to other investigators. A typical goal of the
analysis is to determine how various environmental and biological
factors affect the persistence or extinction of populations. A
reason for using mathematical models is that in situations
involving endangered species, genetically engineered organisms,
or large scale environmental change, it is often impossible to do
experiments but crucial to have some idea of what to expect.
Some of the models are directly motivated by problems in refuge
design or pest control. Others are motivated by basic scientific
questions about the effects of the spatial aspects of
environments on populations. But even those may prove to be
relevant to issues raised in the contexts of environmental
protection and the biological effects of global change. The
potential benefits of the project include improved decision
making in conservation, refuge design, land management, and urban
planning.